Arithmetic and Lifting of Automorphic Forms

The investigator proposes to study arithmetic questions arising in the
theory of automorphic forms and linear algebraic groups, especially in
the context of the Langlands program. As an example, it is well-known that
a wealth of arithmetic information is contained in the Fourier
coefficients of a classical modular form on the upper half plane.
The investigator has an ongoing project (with B. Gross and G. Savin)
to develope a theory of Fourier coefficients for certain modular forms on
the exceptional group G2 and to extract arithmetic information from these
coefficients. The investigator is also
interested in constructing and classifying arithmetically interesting
cusp forms on reductive groups, and relating them to certain
influential conjectures of Arthur. He intends to exploit the exceptional
theta correspondence for the construction of some of these cusp forms.

The theory of automorphic forms is one of the main themes of modern
mathematical research. Besides being a beautiful subject in its own
right, it is intimately connected with other important areas of
mathematics such as number theory (the study of
properties of numbers, with applications to cryptography)
and representation theory (the study of symmetries, with applications to
physics). Often, it has surprising applications to concrete problems, such
as the construction of Ramanujan graphs which are of great interest
in communication and network theory. Particularly important and elusive in
the theory of automrophic forms are certain primitive objects known as
cusp forms. The investigator hopes to further our understanding of
these basic objects by giving explicit constructions of some of them.